AMBIGUITY: Meaning and Applications

ABSTRACT
A decision-maker choosing a course of action typically does not know with
certainty the consequence of any chosen action. However, if she knows
enough about the likelihoods of the various consequences that she can
assign probabilities to them, then she can use these to weight the benefits
and costs of any action and thereby rank alternative actions. In such
situations, we describe the choice problem as one of risk and the decision
procedure is the well-known expected utility theory. However, in many
settings, particularly in a new or changing decision environment, there may
not be much information available on which to base the assignment of
probabilities. Then we refer to the situation as one of ambiguity. This project is concerned with modeling decision-making under ambiguity.

In the early 1920's both Keynes and Frank Knight suggested the importance of the distinction between risk and ambiguity and the prevalence of the
latter, while Ellsberg, in his famous 1961 experiment, showed that the
distinction was empirically meaningful. This project will focus on the
precise formal meaning of ambiguity. In particular, it will address the
question ``how can we tell from behavior that the decision-maker views a
prospect as ambiguous rather than risky?'' Then it will examine the
consequences for the theory of financial markets of modeling asset returns
as involving not only risk but also ambiguity. It is to be expected that
such a theory would deliver, as one component underlying asset prices, a
premium for bearing ambiguity in addition to the traditional premium for bearing risk.